Purchase of Parallel Computer for Chemistry Research

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the Northwestern University in the purchase of a distributed memory parallel computer. This equipment will enhance research in a number of areas including the following: parallelized local-density and density functional electronic structure calculations, parallel scattering calculations, dynamical mean-field studies and molecular dynamics calculations. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, and provides state-of-the-art graphics and visualization facilities.